Research Experiences for Undergraduates in Cellular and Molecular Biology

The School of Natural and Applied Sciences, Program in Biology at the University of Houston-Clear Lake is comprised of seven full- time faculty engaged in a wide variety of research projects within the area of Cellular and Molecular Biology. The biology faculty seek funding to sponsor students from the nine local area community college systems. Funding for each year will provide student scholarships, registration fees for a three-unit topics course, student health insurance for the summer, laboratory supplies for the research project, and one-month summer salary for the program director. The current application is to recruit 14 students per year for a summer laboratory research internship. This will offer the top quality minority and women students form UH-CL's regional community college population an opportunity to obtain first-hand experience in a research arena. The division is extremely active in supporting undergraduate research. The participating faculty have published or submitted 28 papers co-authored by undergraduates in the last five years. Over 50 undergraduate students have participated in research activities in our laboratories since 1983.